Collaborative Research: An Experimental Approach to Organizational Culture

Organizational culture is a familiar concept to both researchers and
managers. It is frequently cited as the source of a firm's efficiency or as
the cause of problems in firm adaptation or mergers. However, in spite of
its familiarity, it has been difficult to capture exactly what
organizational culture is and how it affects firms. We propose a series of
studies that use an experimental procedure to create something very similar
to culture in the laboratory. The basic elements of culture, based on
common threads in the research literature, are that it is something that
arises through shared history and understanding between members of an
organization, that it depends on the organization's history and can
therefore vary greatly between firms, and that it allows members of a firm
to coordinate activity and therefore perform more efficiently.

Our experiments use a task that allows "firms" consisting of two or more
subjects to develop culture through repeated interaction. In our
experiments, language serves as a metaphor for culture - subjects need to
develop a way to refer to unknown and complex objects using simple, short
phrases in order to perform a task quickly. These "cultures" that subjects
develop end up being based on the group's shared history in performing the
task (what aspects of the objects did they focus on initially?), they end up
being idiosyncratic and varying greatly between groups (as an example: one
group came to refer to an object as "Macarena" while another group referred
to the same object as "coffee cups"), and they end up allowing the groups to
coordinate and improve efficiency (the one word descriptions allowed groups
to jointly identify objects quickly).

Our initial experiments investigate what happens when two groups that have
developed culture independently - and have become efficient at performing
the task - are merged. Not surprisingly, differences in cultures lead to
decreases in the efficiency with which the merged group performs the task.
In addition, subjects are not aware of how difficult it will be to integrate
even these simple cultures, leading them to overvalue the merged firm.
Finally, once culture conflict arises, subjects blame the source of the
failures on incompetence on the part of other subjects rather than on the
difficulty in integrating different cultures. Future experiments will
further explore the last phenomenon by more closely examining the extent to
which subjects place the blame for merger failure on others rather than on
culture incompatibility. One implication is that managers may fire
employees too frequently, blaming low performance on their incompetence
rather than on the need for cultural integration. We will also explore how
cultural integration is related to whether members of an organization have
common or opposed incentives.